Equipment and Modules for a Capstone Course in Applied Mathematics

Mathematical Sciences (21). A team of applied mathematics faculty is adapting various modules developed in the Analysis, Computation and Experiment (ACE) Laboratory in the Department of Mathematics at the Georgia Institute of Technology, and at the Modeling, Experiment, and Computation (MEC) Laboratory in the Department of Mathematical Sciences at the University of Delaware. The modules are being used in a senior capstone course to introduce the study of interfacial fluid dynamics and the dynamics of self-assembly, both of which are of current research interest and have industrial applications. The intellectual merit of this activity lies in its use of proven course materials and their incorporation into a laboratory experience for mathematics students, which closely couples theory and experimentation. In addition, the expanded laboratory capabilities are being made accessible to students in lower-division mathematics courses thus broadening the impact of the primary adaptation activity. Finally, the laboratory is also available to advanced undergraduates interested in performing faculty-supervised independent research.